Collaborative Research: DiGIR-Mapper, a Web-Based Mapping and Analysis Tool for Natural History Collections

The Oregon State University, in collaboration with the University of California Berkeley has been awarded a grant to develop web based GIS software and tools designed to exploit the capabilities of the existing stand alone DIVA system and to enable easily implemented and online analyses of the rapidly growing wealth of natural history specimen distribution data available on the internet. The project is well integrated in the DiGIR community and will enable sophisticated analyses of large datasets at institutions that lack both the extensive natural history collections and significant hardware and software investments that were previously necessary for large scale spatial distribution analyses of organism distributions.